Buoyant Discharge on the Shelf in the Presence of Transient Currents: Nonlinear Interaction, Adjustment, Mixing

9907995
Yankovsky

The project is a modeling study of the interaction of buoyancy-driven and transient wind-driven currents. Analysis of data from Hudson and Columbia River plumes will be performed. And for their interpretations, numerical runs using SPEM (version 5.1) will be carried out in the parameter space of the observed plumes.